SBIR Phase I: Nanospring-Based Ultracapacitor Electrodes

This Small Business Innovation Research Phase I project is for development of Nanospring mats for electrodes in next generation ultracapacitors. The mats have high surface area for integration into ultracapacitor devices.

The high specific power of ultracapacitors coupled with their ability to be rapidly charged and the potential for lightweight structures make these devices of significant interest for automotive applications in hybrid and fully electric vehicles.